Presidential Faculty Fellow Award: Intermediate Languages for Enhanced Parallel Performance

The Psi Calculus is taught and used as a mathematical framework for architecture independent enhanced parallel performance for array expressions. Results are applicable in actual compilers for data parallel languages such as High Performance Fortran. Real world practicum trains computer science and engineering students in leading edge research and development technologies.